An Undergraduate Materials Science/Metallurgy Laboratory.

The undergraduate materials science and metallurgy laboratory will be upgraded with modern equipment. In addition, the emphasis in the laboratory will be changed from qualitative to quantitative measurements. Improved will be the present experiments in deformation hardening, alloying effects, heat treatment, recrystalization, precipitation hardening, and martensitic strengthening. With the new equipment, five new experiments will be added covering time, temperature, transformation curves, stress-strain characteristics, solid solution hardening, multiphase eutectic structures and general metallography. These new experiments will use instruments such as nanovoltmeters and electrometers, micro- and regular hardness testers, and optical microscopes.